Planning Under Uncertainty Using Parallel Processors

Focus is on techniques to solve large scale nonlinear programs, subject to uncertainty, emanating from electric power systems resource planning by utilizing a combined nested Benders decomposition, high speed importance sampling and parallel processing.